NSFNET Connection for Montcalm Community College

9421279 Middleton This project connects Montcalm Community College to the Internet over a 56 kbps line. Faculty and students at the school benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they are able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for two years.